ITR/AP: A Web-Based Scientific Analysis Facility for Nuclear & Particle Physics Data

This project addresses the need to improve the way we access
experimental data and theoretical models associated with nuclear and particle physics reactions. Tools will be developed in order to achieve: (1) more efficient searching within the database of existing measurements; (2) interactive comparisons between data and models constructed to describe them; (3) the incorporation of new measurements into the system. A wide range of capabilities will be presented in order to satisfy both the novice and advanced users. Private accounts will be available to professionals wishing to analyze preliminary experimental results, or plan for new measurements. Methodsdeveloped here will be applicable to other scientific databases as well. Linking such sites through the Internet promises to accelerate much of the background checking required in scientific research.